Planning Grant to Support the Development of the Project "Visualization as a Tool in Informal Science Education at Lake Tahoe"

Planning Grant to Support the Development of the Project “Visualization as a Tool in Informal Science Education at Lake Tahoe”

Summary:

Researchers at the U.C. Davis will carry out observations of museum visitors to plan for a study of how visualizations affect visitors of an Earth Sciences exhibit using 3D technology. The researchers will be able to conduct an experimental study about how much participants in an education center learn from the model of earthquakes and of a model of the Lake Tahoe basin. The researchers will conduct a quasi-experiment of a sample of 100 visitors to the center at Lake Tahoe to study their experience with visualization and learning of science. The funding for this phase of the project will include the development of audience surveys, conducting focus groups to develop types of feedback, train staff to conduct data collection, and to conduct a literature review of technology visualization.